CAREER: Spectroscopic and Electrochemical Studies of Nanoparticle Size, Shape, and Surface Chemistry

Abstract
CHE-0645041
Haynes/Minnesota

With the support of the Analytical and Surface Chemistry Program, Professor Haynes and her colleagues in the Department of Chemistry at the University of Minnesota are examining the effects of nanoscale materials on the function of cellular machinery. The effects of nanoparticle size, shape, composition and surface chemistry on the function of model cellular systems are investigated using electrochemical and spectroscopic probes. Carbon fiber microelectrode amperometry, and calcium ion imaging of cell function will be used to assay cytotoxicity of the nanoparticle materials. This Career award integrates graduate training in the area of nanomaterials with emphasis on technical writing and presentation of scientific results.

Using electrochemical and spectroscopic probes, Professor Haynes and her coworkers are examining the effects of noble metal and polymeric nanoparticles on the function of model cell lines. Uptake of these materials as a function of size, shape, composition and chemistry will be used to understand cytotoxicity of these materials. Growing applications of nanomaterials in consumer products and in the general environment indicate a need for a better understanding of the effects of these materials on cellular function. This Career award integrates training in technical writing and presentation with the research training of graduate students.